I-Corps: Translation Potential of Lean Programming Language for Scientists and Engineers

This I-Corps project is based on the development of an artificial intelligence (AI) system that automatically converts the mathematical derivations found in scientific papers into software that is mathematically verified to be correct. Scientific software, especially in pharmaceutical development, chemical manufacturing, advanced materials design, and energy systems, translates scientific theories into executable code, but the mathematics and the code are rarely checked against one another. Standard software testing cannot verify that it faithfully encodes its underlying theory; subtle mistakes may not crash the code, but may lead to systematically wrong results. The need for automated verification and validation of software is growing as AI increasingly authors and co-authors scientific software. By giving scientists and engineers a tool to produce mathematically guaranteed code for their applications, this technology may reduce costly failures in drug development, improve reliability in industrial process design, and provide an auditable foundation for AI-generated scientific models across a range of high-stakes industries.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of an autoformalization pipeline for scientific computing. The technology is a multi-agent Artificial Intelligence (AI) system that accepts scientific derivations as input and produces formally verified Lean code as output, with a domain scientist serving as a human-in-the-loop quality layer. Lean is an interactive theorem prover in which mathematical statements and their proofs can be machine-checked for correctness. Existing formal verification tools are designed for systems software or pure mathematics. None address scientific computing, where correctness requires agreement with both scientific theory and physical reference data. The pipeline uses a large language model to initialize a structured proof blueprint from scientific documents, then deploys proof-completion agents to close individual proof goals, iterating until theorems are machine-checked. Prior hand-crafted demonstrations of formally-verified software for molecular simulation and surface area analysis establish that machine-checked scientific computing is achievable and scientifically meaningful, yet tedious without machine assistance. The I-Corps program will determine which customer segments across pharmaceutical, chemical, materials, and scientific software industries have the most acute need for this technology. Bug-free simulation code may reduce the cost and risk associated with experimental errors, product failures, and regulatory issues, particularly in industries where accuracy is mission-critical, such as pharmaceutical and chemical manufacturing.